Neural Waveform Analysis in Extracellular Recordings

This award will fund a special session on Neural Waveform Analysis in Extracellular Recordings during the 14th Annual Conference of the IEEE Engineering in Medicine and Biology Society meeting in Paris, France. Five keynote speakers will cover the following topics: 1) multiple extracellular electrode manufacturing technology; 2) automated systems for detection and classification of neural waveforms; 3) hardware for on-line detection and classification of waveforms; and 4) algorithms for detection, classification, and superposition resolution. This area of research involves complex recording and analysis techniques that need to be developed further in order to allow neuroscientists to study large groups of neurons. The special session that will be supported by this award should stimulate research by biomedical engineers into this emerging area.